Mathematical Sciences: Topics in Ergodic Theory and Dynamical Systems

Professor Feldman will continue his research in ergodic theory with the following areas singled out for attention: (i) the extension of some of the ideas of equivalence of systems from the situation where the group which is acting is the integers or the reals to the case where the group is only assumed to be amenable, (ii) geodesic flows on smooth manifolds, and (iii) subrelations of ergodic equivalence relations. Research in ergodic theory involves trying to understand the average behavior of systems whose dynamics is too complicated or chaotic to be followed in microscopic detail. Under the heading "dynamics" can be placed the modern theory of how groups of abstract transformations act on smooth spaces. Another important theme in ergodic theory is the classification of systems into broad categories which are mathematically identical in an abstract sense. Professor Feldman's research will make contact with these areas.